Research Experiences for Undergraduates in Chemistry at Occidental College

Dr. Phoebe Dea and other members of the Chemistry Department at Occidental College are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. The program continues to focus on attracting Los Angeles area community college students, particularly minority students, to work side-by-side with Occidental College faculty and students in summer research. The program is successful in stimulating community college students to continue work toward the bachelors degree by achieving admission to four-year colleges and universities.